Relativistic Nuclear Physics

Dr. J. McNeil has made major contributions to the field of relativistic hadron-nucleus scattering theory, such as the development of the relativistic impulse approximation, (RIA) and the calculation of magnetic moments. He plans to continue his research in this field by performing a relativistic RPA calculation of the response functions of finite nuclei, by analyzing meson-nucleus scattering within the RIA and by doing a relativistic calculation of subcoulombic radiative capture processes. Dr. McNeil is a young nuclear theorist who has made seminal contributions to the new field of relativistic nuclear physics. His specialty is relativistic hadron-nucleus scattering theory. With his collaborators he has performed significant calculations which have greatly contributed to the development and advancement of this field. He plans to continue his research in this area.